Research Experiences for Undergraduates in Chemistry at Texas A&M University

This project, funded by the Chemistry Division, supports Dr. Gary Sulikowski and other members of the Chemistry Department at the Texas A & M University in establishing and conducting a new Research Experiences for Undergraduates (REU) site in chemistry. For the period 2000-2002, 30 undergraduate students will spend ten weeks each conducting summer research under the supervision of Chemistry faculty. Participants will be involved in research projects along with graduate students, post-doctoral fellows, research staff, other undergraduates and their faculty mentors. Students will achieve a realistic understanding of the demands of independent chemical research and gain self confidence in pursuing such studies.